Growth Management and Modernization of the Ephemeroptera Collection at Florida A&M University

ABSTRACT DBI 9808827 William L. Peters Florida State University Recent large donations of Ephemeroptera (mayflies) to Florida A&M University have made this university collection one of the largest and most significant collections of mayflies in North America. As these donations exceed normal growth, this project is concerned with the management and preservation of incoming collections and modernization of the entire Ephemeroptera collection. Specific objectives are a) to continue to assure the integrity of all type and voucher material arriving at Florida A&M University; (b) to upgrade storage of the Berner collection; (c) to integrate the Traver and Edmunds collections into the existing Ephemeroptera collection; and (d) to house the Ephemeroptera collection in steel storage cabinets in such a way as to make them easily accessible for revisionary work and future growth management. The donations include the transfer of the entire Berner collection (including the Lyman collection) from the University of Florida and a portion of the Edmunds and Traver collections from the University of Utah to Florida A&M University. The greatest significance in the Berner collection is the historical record for the mayflies of the Southeastern United States. Additional material comes from many other areas, including Africa. The Berner collection is a specimen-based collection, so that any published record can be accessed by specimen in a few minutes using a system of card catalogs and indices. In the time the Berner collection has been at Florida A&M University, it has been the source of frequent loans as revisions of North American mayfly genera or species must return to the published Berner distributions. The Edmunds and Traver collections are worldwide in scope, with greatest strength in the Neotropical representatives of Leptophlebiidae and Leptohyphidae. The Edmunds and Traver collections contain type material for over 100 sp ecies, including 55 primary types. Specific curatorial needs for these collections include replacing all bakelite lids on 16 oz jars with polypropylene closures, replacing all rubber-lined closures on a 50-year assortment of different sized jars with standard-sized museum jars (16-oz, 32-oz) and polypropylene closures, and disintegrating stoppers. All collections, those in racks and those in jars, will be placed into steel storage cabinets. For future access, they will be stored phylogenetically by family or superfamily group. All type material in alcohol will be curated into a double storage vial system (inner and outer vials) in museum jars.